Collaborative Research: NRI: Smart Skins for Robotic Prosthetic Hand

In the U.S., there are over 41,000 registered persons who had an amputation of hand or complete arm, and approximately 10,000 new amputation cases in the upper limb each year. Prosthetic hands that can significantly improve the quality of amputees’ life are highly desired to restore many activities of daily living, particularly in hand grasping and object manipulation. However, being able to use the hand accurately remains a grand and fundamental challenge in robotic prosthetic hands, especially in the desired trait of slip prevention for reliable and stable grasping in real life environments. The challenge resides in integrating fast sensing of slip detection and rapid movement in the small-area in the fingertips to prevent slippage through the use of sensors and controls of the prosthetic hands. This project proposes to meet this challenge by exploring a new concept of a skin that can change its shape for prosthetic hands in real-time. For this research project, the investigators will explore how to adjust the skin friction automatically. This project seeks to significantly advance the current state-of-the-art prosthetic hands to achieve the similar functionality of human hands, as well as enhance the ability of upper limb amputees for performing activities of daily living. Through both collaborative and individual efforts of the interdisciplinary team with distributed geographical location across the country (Raleigh, Philadelphia, and Rolla), this NSF project offers a unique opportunity to integrate insights from robotics, mechanics, design, advanced manufacturing to generate an intriguing and visually appealing broad participation plan. Through existing programs, such as senior design projects, Society of Women Engineering, honor program, and UNC Working on Women in Science, the investigators will encourage underrepresented groups of undergraduate students in research activities, including female and African American students. With the help of established similar summer programs and other educational programs in each institution, the investigators aim to improve the STEM education of K-12 students.

The goal of this project is to fundamentally understand the adaptive tactile interactions between the smart shape-morphing robotic skins and grasped objects for autonomous slip prevention in robotic prosthetic hands. Three thrusts will be pursued ranging from fundamental understanding of contact behaviors in smart morphing skins-objects through design, fabrication, actuation, and modeling in Thrust 1, to integrate flexible tactile and spatial sensing on the smart skins in Thrust 2, and to interactive integrated human-robotic system for anti-slip evaluation in Thrust 3. This project will examine and demonstrate the integration of multi-scale manufacturing technologies to achieve complex functional systems at human-object interface, as well as the innovative reflex-like control of a robotic prosthesis hand. This project will generate new knowledge on the active role of actuated shape-morphing surface morphologies in tuning the friction. The translational research on upper limb amputees will provide new insight on human-prosthesis interactions and effectiveness of shared prosthesis control paradigm on amputees’ motor function and cognitive load. This project will also advance the knowledge in the multidisciplinary field of mechanics, sensing, manufacturing, robotic prosthesis controls, and human-robot interaction.